Southeastern Analysis Meetings and Young Analysts Meeting of Southeast

DMS 0400383

Wing Suet Li

Ga Tech

SE Analysis Meetings

Abstract

The Southeastern Analysis Meeting (SEAM) is an annual meeting that began in 1985. This year's SEAM will take place at the University of Alabama, Tuscaloosa, on March 25 and March 26,2004.

The purpose of the meeting is to encourage the interchange of the latest developments and ideas in the area of Functional Analysis and Operator Theory, and in particular, for the enhancement of the junior faculty and graduate students. NSF's funding will be used completely for participants support.